Vortex Models of Turbulence and Large-Eddy Simulation

ABSTRACT Proposal Number: 9634222 Principal Investigator: Pullin This is a continuation grant to investigate the role of dynamics and kinematics of stretched vortices in describing the fine scales of turbulence with special emphasis on the relation of the fine and inertial range scales to the large scales in the context of large eddy simulation. The research will focus on three areas: a) continued development and testing of an LES model of for flows of increasing complexity, b) completion of the calculation of the longitudinal-velocity structure functions followed by the calculation of other structure functions of other turbulence quantities such as pressure and dissipation, and c) continuation of supporting research in vortex dynamics which will enhance our understanding of the structure of turbulence. This is an extension of prior work in which a standard model of turbulence was developed on the basis of the stretched vortex model of Lundgren.